Gordon Research Conferences: Summer 1994

9400777 Storm The Gordon Research Conference are help every summer to discuss recent findings and current thinking in various areas of science. Although participation is limited, the attendees usually consist of established scientists, young investigators who are making important contributions in these areas, and post doctoral fellows. They are usually held in small isolated New England towns away from other distractions and are conducive to the free exchange of ideas. These conferences have a recognized value for presenting the latest advances in research and also indicating the future trends which are likely to be most productive. ***